Lean and Green Production Systems Class Project

Engineering Other (59)

This project is incorporating lean manufacturing techniques and environmental sustainability (green production) issues into an existing production systems project. The PIs are developing exemplary materials on how to achieve this goal, by modifying an existing project enabling students to synthesize course concepts in a real-world simulation-based production system. The modern manufacturing techniques include set-up reduction, one-piece flow- pull and cross training. Environmental sustainability includes topics such as energy use and the release of toxic waste. The project is also utilizing formative and summative assessment techniques allowing them to modify the course and simulation thereby improving student learning.